Mathematical Sciences: A Special Year on Discrete StochasticSystems ( Including a Workshop on Stochastic Systems )

The systems to be studied arise as models for communciation systems, computer networks, and manufacturing systems. As engineering systems become more complex, their mathematical analysis at the design stage becomes increasingly important. Considerations of the applicability of the mathematical models studied during this year will be central to the activity.